NSF Young Investigator

9457519 Kim This project is aimed at designing, evaluating, and implementing a high-speed multimedia network based on the ATM technology and other alternatives. Critical research issues include modular high-performance switch architecture, user-access and congestion control of multimedia traffic, and performance evaluation of a resulting network architecture with multiple-hop tandem nodes. The proposed multicast ATM switch differs significantly from currently existing switches in terms of switch performance and hardware complexity. The main characteristics of the switch architecture include: shared-memory queue, distributed control, multicast capability, and low hardware cost. Research will include implementing and extensively testing multiple 16x16 switches using real user data and evaluating performance of a multiple-hop ATM network using a recursive queueing model and simulation tools. Research will also include the investigation of the impact of heterogeneous and unbalanced multimedia traffic on the performance of multiple-hop ATM networks. The principal investigator (PI) will use a network testbed consisting of the proposed switches to evaluate various traffic control algorithms using real network traffic. Success results from these experiments will improve analytical techniques using queueing models and validate the accuracy of traffic and network models.